Parallel Computing and Problem Solving Environments: Providing Massively Parallel Computing to Problem Solvers Symposium

9407750 Makedon The aim of the workshop, to be held at Dartmouth College, July 5- 7, l994 is to explore the role of parallel computation in problem solving environments. The symposium proceedings, including the text, audio and video of the presentations will be published on a CD-ROM. ***